Laboratory Instrumentation in Archaeology and Physical Anthropology at KSU

The undergraduate field and laboratory courses in archaeology and physical anthropology within the Anthropology Program at Kansas State University are being up-graded. It is proposed to purchase a microscope video recorder and monitor to be used with an existing binocular microscope as an innovative method for teaching students edge-wear analysis of stone and bone tools in archaeology. Additionally, it is requested that both a binocular microscope with camera mount, a video-recorder/ monitor and a VCR/player be purchased for teaching students to analyze bone wear and breakage as well as bone damage associated with forensic analyses in physical anthropology.